CISE Research Instrumentation: Hypercube Memory Upgrade

A hypercube-computer memory upgrade will be provided for researchers at Oklahoma State University for research in the School of Electrical Computer Engineering. This equipment is provided under the Instrumentation Grants for Research in Computer and Information Science and Engineering program. The research for which the equipment is to be used will be in the areas of: Parallel Lp Algorithms for Beam Forming Parallel Superquadric Description for Machine Vision Hypercube Ray Tracer for Computer Graphics Hypercube Image Processor (HIP)